Competitive coexistence and life cycle stages

Cushing

Competition is one of the most fundamental interactions occurring
among biological species. The investigators study carefully derived models
in order to understand the mathematical and biological mechanisms that
promote the stage-structure-mediated coexistence phenomenon that occurs
under strong inter-specific competition. Special cases that allow a
dimensional reduction are particularly important in the study because these
cases are amenable to rigorous mathematical analysis using stability theory
and bifurcation methods. The robustness of the competitive coexistence
phenomenon is investigated by studying a variety of other models, including
models allowing a large number of life stages, different kinds of
inter-stage competition scenarios, different types of nonlinearities, and
communities of more than two competing species.

The importance of the investigation is to study the underlying
principle in theoretical ecology that states coexistence among biological
species requires some sort of niche separation that decreases
inter-specific competition. This project contributes to the understanding
of ecological niche and competitive coexistence. Overall, it can lead to
the ability to understand and develop mechanisms to handle problems such as
natural resource management, introduction or re-introduction of species
into ecosystems, sustainable yield in the harvesting of ecosystems, and
biocontrol in pest management.